ARI-LA: Domestic Nuclear Security Technology

0736232
Morse
This research has as its objective the advancement of the state of the art of nuclear threat detection while developing a new generation of scientists who will be tomorrow’s leaders in the field of homeland security. The technical mission is divided into four thrust areas: (1) Advanced Materials for Radiation Detection, (2) Informed Decision Analysis, (3) Nuclear Data, and (4) Signals and Networks for Radiation Detection. Much of the associated outreach work will be aimed at the technical community through the provision of two high profile National Conferences.